Scheduling Construction Projects by Using Product Models and Learning from Cases

To exploit the fact that many construction projects are planned and work methods selectedbased on previous experience, a scheduling model using case-based reasoning is presented. This model not only adapts previous cases to suit a new project to be scheduled; it also extracts and summarizes planning knowledge from several cases and stores that as part of its knowledge base for future use. Thus the storage problem that arises when keeping many cases around is reduced, as planning knowledge is incrementally compiled. To efficiently retrieve this compiled knowledge or the cases, CasePlan uses a product model that describes at a general level what design elements are present in projects and how they structurally or functionally relate to another. The product model is used for case classification and learning planning knowledge. The research demonstrates the importance of product models in organizing and compiling knowledge. The CasePlan system resulting from this research will also be a state-of-the-art automated scheduler for construction. Its schedules will have enough detail to drive a discrete-event simulation of construction execution of the project, which can provide execution feedback and serve to assess the quality of CasePlan's output.